Connections to NSFNET

9301384 Bautsch The Seattle Community College District is establishing a connection to NSFNET via a 56,000 bits per second line. The connection serves three community colleges, one vocational institute, and four educational centers. It enables the faculty and students to communicate and collaborate with the international scientific and educational community, and to access network resources such as libraries, databases and supercomputers. This award funds part of the costs for two years. ***